Investigations in Elementary Particle Physics

This action will provide funds for two faculty, two research associates and four to five students to continue their research in elementary particle physics with accelerator facilities at Fermilab. 1. A continuation of a series of experiments ıE594 and E733! to investigate neutrino interactions. The goals include measurement of a basic parameter in the theory of electro-weak interactions ıthe Weinberg angle! and a detailed understanding of the weak interaction involving no change in electric charge ıneutral currents, in particular the measurement of weak neutral current structure functions!. 2. Collaboration in the fabrication and preliminary operation of the D0 detector (E740) to be used at the world's highest energy colliding beam facility. About 150 physicists are involved in this project, the principal responsibility of the Michigan State group is the design and fabrication of a fast trigger system capable of selecting the events for detailed analysis from the many less interesting events. The scientific interest is to make detailed and precise tests of the model of electro-weak interactions known as "the standard model". The standard model accurately describes the electro- weak interactions observed to date but is known to have validity limited to the energies below a few hundred TeV. The D0 experiment will probe the standard model at energies higher than available in the past.